2010 Oceanographic Instrumentation: Replacement of the 12 Khz Transducer for R/V Atlantic Explorer

A request is made to fund replacement instrumentation on the R/V Atlantic Explorer, a 168’ general purpose research vessel operated by Bermuda Institute of Ocean Science (BIOS) as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. The request includes one item:
1) 12 KHz Transducer
Funds are requested for acquisition of a replacement 12 KHz Transducer. The existing transducer failed and is no longer operational.

Broader Impacts:
The principal impact of the present proposal is under criterion two, providing infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.